Interfacial Mechanics and Contact Properties of Model Membranes

Summary and Intellectual Merit
A group led by the PI will develop a highly sensitive adhesion experiment designed to assess
the interactions between well characterized model surfaces in water. The measurement is based
on the contact between a synthetic polymer membrane and a quartz crystal resonator. The
membrane consists of an elastic layer at the air/water interface, and is an excellent model for a
variety of materials ranging from synthetic polymer gels to living tissues. The membrane
surface and the surface with which it interacts will both be coated with molecules that are
designed to eliminate non-specific background adhesion between the two surfaces. Specific
adhesion molecules will then be added to both surfaces, and the adhesion energy will be related
to the interaction potential of the individual bonds, and to their surface concentration. The
experiments are conceptually similar to dewetting experiments, with contact of the membrane
and the surface corresponding to a region where water has been largely excluded from between
the contacting surfaces. The experimental geometry is designed to give sensitivity to very small
contact angles, and hence to very small adhesive interactions. Membrane elasticity serves two
important functions. The first of these is to extend the range of adhesive interactions that can be
probed so that the molecular origins of mechanical toughness of soft, highly deformable
materials can be thoroughly investigated. The second function of membrane elasticity is to
provide a means for fixing the adhesive molecules in place while isolating the system from the
surrounding air environment so that the surfaces remain hydrated, even while in mechanical
contact with one another. A detailed mechanical analysis will be developed for cases where the
adhesion energy is large enough so that elastic effects must be taken into account. Additional
information about the nature of the mechanical contact will be obtained by monitoring the
frequency shift and dissipation of the quartz crystal resonators in the vicinity of a mechanical
resonance of the crystal. The experimental methodology can be applied to a wide variety of
adhesion problems in polymer physics and in biology, but experiments will begin with studies
utilizing adhesive molecules that are very well characterized at the single molecule level.
Broader Impacts
The PI has developed a unique online multimedia text in polymer science that will undergo
continued revision during this funding cycle. Additional contributions to undergraduate and
undergraduate education will result directly from the proposed work, with three Ph.D. students
and between 6 and 8 undergraduate students being trained in various aspects of mechanics,
polymer physics and polymer synthesis. International experience will also be obtained as part of
a collaboration with Prof. Diethelm Johannsmann at the University of Clausthal in Germany.
Two Ph.D. students will conduct research in the Johannsmann laboratory during the course of
this project, and two students from the Johannsmann laboratory will visit the PI's lab at
Northwestern. Existing outreach activities will continue at local high schools and middle schools
in Evanston and Chicago. The enhancements in mechanical characterization capabilities
resulting from the proposed work will benefit a variety of research groups at Northwestern, in
addition to scientists and engineers at local companies who utilize the micromechanics lab
supervised by the PI. The broader scientific impact of the work will be felt most strongly in the
biomaterials community, by providing a means for quantifying adhesion in practically relevant
biological systems that are amenable to the membrane geometry.